Planning Grant To Enhance STEM Infrastructure and Improve Retention of Native Hawaiian Students

Kauai Community College will assess its STEM curriculum, infrastructure, and evaluation procedures and determine a course of action to strengthen STEM instruction through the integration of curricula and research. Central to this effort is a pre-technology project-centered learning community to help address barriers that prevent entry of native Hawaiians into STEM-based career pathways.

Research activities will serve as foci for the enhancement of STEM curricula and infrastructure. This approach will engage students in research and strengthen institutional partnerships with private and public sector organizations offering enhanced internship opportunities. An assessment instrument to track project outcomes and the success of STEM graduates will also be developed.